A Proposal to Support Student Travel for the ACM CoNEXT 2012 Conference

The 8th International Conference on emerging Networking EXperiments and Technologies(CoNEXT) will take place from December 10 to December 13 2012 in Nice, France. CoNEXT is a highly selective (<20%), high-quality conference sponsored by the ACM Special Interest Group on Data Communication (SIGCOMM). The conference is a major forum for presentation and discussion of novel networking protocols and technologies.

The proposal requests funds to partially support the travel of 10 US-based graduate students. The support amount will be $1,500 or the actual documented amount of expenses, whichever is less. Each student will need to cover expenses in excess of the fixed amount from other funds. Preference in the award of the travel grants will be given to students who have their work accepted to the CoNEXT student workshop which will take place the first day of the conference. Other criteria will include evidence of a serious interest in networking, as demonstrated by coursework and/or project experience.

Broader Impact:
This project integrates research and education of students through exposure to a premier technical meeting in computer networks and communications. Students will have the opportunity to observe high-quality presentations and interact with senior researchers in the field both in the main conference and the associated workshops. The PI will especially encourage women and under-represented groups to participate.